Research in Theoretical Medium Energy Nuclear Physics

This grant supports theoretical work to analyze baryon structure and baryon-meson coupling employing relativistic corrections to the constituent quark model. The electron excitation of the nucleon will be investigated and the nature of the interactions between nucleons and hyperons.